Statistics and Probability: Project SPY (Statistics, Probability, and You)

9552942 Laurie The University of Alabama will initiate a 4-week, residential Young Scholars project for 24 young women entering grades eight and nine. The disciplinary focus is in statistics and probability with small group interactions emphasizing written and verbal communications utilized to explore and build skills. Monthly follow-up occurs throughout the academic year with women scientists as mentors. Parents, teachers and counselors are involved to support and extend the project's benefits.